STTR Phase I: Commercializing a Unified 3D Perception Model on Real Robots

The broader/commercial impact of this Small Business Technology Transfer Phase I project is to develop a comprehensive digital brain that allows robots to see and understand their surroundings in three dimensions. Currently, many robots struggle to recognize objects or navigate environments if their view is partially blocked or if lighting is poor. This project addresses these limitations by creating a system that reconstructs a full 3D map of a room in real time, identifies what specific objects are, and even predicts the hidden shapes of items that are only partially visible. Such a breakthrough will empower robotics startups to build smarter machines for critical tasks. By improving how robots perceive the world, this technology promises significant public benefits, including the safer inspection of crumbling bridges and roads, more precise environmental monitoring, and enhanced situational awareness for emergency responders. This investment serves the national interest by advancing American leadership in automation while fostering technologies that improve human safety, sustainability, and overall quality of life.

This project addresses the high-risk technical challenge of integrating real-time, high-fidelity scene reconstruction with semantic object understanding and geometric shape completion within a single, unified neural framework. The primary innovation lies in the development of a shared-backbone architecture that simultaneously performs localization and dense mapping while inferring the complete 3D geometry of occluded or partially observed objects. By utilizing a single image encoder to process visual data for multiple downstream tasks, the system overcomes the significant computational overhead that typically prevents complex perception models from running in real time on mobile robotic platforms.

The proposed methodology employs an advanced generalizable Gaussian splatting technique for simultaneous localization and mapping. The system processes color and depth data through a deep network to generate 3D Gaussian primitives, which are merged across successive frames to create a high-resolution map. Simultaneously, the project implements an instance completion algorithm that leverages the same extracted features to predict the full volumetric form of segmented objects. This dual-purpose approach ensures that the robot maintains an accurate camera trajectory while populating its map with complete, plausible object models rather than fragmented surfaces. Research activities will focus on scaling training datasets for both indoor and outdoor environments and optimizing the underlying code to achieve low-latency performance. The successful execution of this project will provide a robust foundation for autonomous systems to operate reliably in uncertain, real-world environments through superior spatial and semantic awareness.